Inequalities for Polytopes and Permutations, and Homology for Newtonian Coalgebras

The Principle Investigator studies a new class of inequalities
on the flag f-vector of convex polytopes. The flag f-vector
contains all the enumerative incidence information between the
faces of a polytope. Thus to classify the set of all possible
flag f-vectors is one of the great open problems in discrete
geometry. To date only partial results to this problem have
been obtained. In a related problem, the Principle Investigator
and his Research Assistant will study the homology groups of
Newtonian coalgebras that arise in polytopal theory. These
homology groups were recently used to give an algebraic proof
of the existence of the cd-index, an important invariant in
poset theory. Understanding the homology of these chain
complexes will give insight into new applications of Newtonian
coalgebras.

Polytopes are basic mathematical objects that appear in
discrete geometry. The methods to attack these problems are
unusually interdisciplinary as they involve insights from both
geometry and algebra. The results of this investigation are
important as they relate both to the pure branches of
mathematics, such as commutative algebra, algebraic geometry
and Hopf algebras, and to the applied sciences, including
optimization and computer science. Understanding the enumerative
information of polytopes will give a theoretical basis for stress
and rigidity problems in mechanical engineering, for the
reconstruction using sampling problem in computer vision, and for
determining the complexity of geometrically-based problems in
optimization.